Advances in Bayesian Model Choice

The investigator considers new default prior distributions for
Bayesian model selection and model averaging in linear and generalized
linear models. Prior choice for model specific parameters and for
prior model probabilities is of critical importance, particularly for
modeling high dimensional relationships where subjective
specifications are impractical or where an ``objective'' analysis is
desired. New families of objective priors that have desirable risk
properties, adapt to unknown degrees of sparsity, and also permit
tractable computations for large scale model search are studied. In
high dimensional problems, the dimension of the model space is
astronomical. Innovative methodology and algorithms for large scale
stochastic search and model averaging for high dimensional model
spaces are developed, with an emphasis on algorithms that exploit the
architecture of Graphical Processing Units (GPUs). GPUs provide the
computing power of a distributed cluster, but at a fraction of their
cost and space/cooling requirements, but require care in the
development of statistical algorithms that take advantage of their
architecture.

Advances in technology have led to the collection of high dimensional
data structures, spawning an increasingly complex array of statistical
models for data. Goals of data analysis may include prediction and/or
selection of a subset of models to test particular theories or to
reduce attention from many speculative models to a few well chosen
models; these are fundamental problems in statistics and throughout
the sciences. In such settings, model uncertainty is ubiquitous.
Bayesian methods offer an effective and conceptually appealing
approach for addressing model uncertainty through Bayesian model
averaging, incorporating both parameter and model uncertainty, while
still permitting selection of a model via coherent decision-theoretic
principles. The methodological developments are driven by issues that
arise from the following applications 1) identifying important factors
to predict protein activity; 2) predicting risk of international
conflict; 3) health effects of criteria pollutants; and 4) identifying
single nucleotide polymorphisms that are associated with ovarian
cancer risk. As prediction and model selection are some of
the most fundamental and widespread problems in the sciences and
beyond, the project's impact extends beyond the applications listed
above. The development and distribution of software ensures that
these methods are widely available.